Institutional Development in Trustworthy Computer Systems

This project provides for institutional development in the area of secure and trustworthy computer systems. It expands laboratory facilities to include a computer network laboratory for information assurance classes. Course materials in computer security and trustworthy computer networks are developed and tested for eventual publication and wider dissemination. A distinguished speaker series brings in national and international experts to the campus. Faculty development is provided through a variety of methods. The area of reliable and trustworthy systems is one of emerging national need. Many of these systems contain embedded computers with software and hardware providing functionality and controlling operations of the system. This can range from use in household appliances to aircraft or medical systems. This program provides expertise and capacity that is in our national interest and adds critical core curricular components to the information assurance field.